High Performance Polymeric Adhesives and Composites

This Science and Technology Center undertakes multidisciplinary, interactive research, as well as broadly based education and knowledge transfer activities. The research focuses on understanding the factors and underlying mechanisms that control the properties of high performance polymeric adhesives and composites, and on exploiting knowledge gained to design innovative advanced materials systems with superior properties. These goals require extensive collaboration and integration of results from a research team with expertise in synthetic polymer chemistry, surface science, mechanics, chemical engineering, and materials science and engineering. The educational and outreach activities include summer undergraduate research programs, a continuing education program for college faculty, and a very extensive continuing education program primarily designed for industrial researchers. Knowledge transfer is effected through research symposia, workshops, academic and industrial personnel exchange programs, strong collaborative interactions with personnel in government laboratories and industry, and publications in appropriate technical journals. This Center is directed by Professor James E. McGrath.